Sub-nanosecond Arithmetic

The topic of this research is the interaction between algorithms, fabrication technology, packaging, and CAD (computer-aided design) tools in a very fast arithmetic processor. The investigators are building a multi-function arithmetic processor that can do floating point arithmetic as well as higher level functions (trig, log, etc.). The processor is constructed in BiCMOS (bipolar complementary metal oxide semiconductor), and is packaged on an active silicon substrate that contains etched interconnection lines and active devices for configuring the lines. New CAD tools are needed to allow estimation and matching of delays in the logic blocks and the interconnection.